GK-12: Inquiry and Innovative Thinking by Design

This is an interdisciplinary program to teach mathematics, science and technology at middle schools in Arkansas. The approach is based on a "learning through doing" paradigm, using the theme of optic and electronic concepts in everyday life. Goals are to be achieved by creating (teaching) teams consisting of graduate fellows, school teachers, university faculty, administrators, and parents of students. This project is being co-funded by the Directorate for Mathematical and Physical Sciences, Office of Multidisciplinary Activities.